Dynamics of Electron Beam Ablation

Abstract Gilgenbach CTS-9522282 The PI proposes to extend his work on pulsed laser ablation to the new film growth method of channel-spark pulsed electron beam ablation. The objectives would be to develop a knowledge base and scaling laws on electron beam ablation, which can be compared to laser ablation and thus evaluate new engineering applications. Five research tasks will be addressed. These include: (1) electron beam characterization, energy deposition mechanisms and electrical efficiency; (2) diagnostic characterization, using laser and optical techniques, of species composition (atoms, ions and electrons); (3) particulate and molten droplet generation mechanisms, size and density; (4) effects of electron transport, focusing, and plasma chemistry in background gases; and (5) electron beam ablative deposition of thin films and correlation with diagnostics. Where applicable comparisons will be made with the corresponding laser ablation results. The electron beams will be generated using a channel-spark device in which high currents (~1.5 kA),and moderate voltages (~20 keV) are employed, resulting in beam energy of approximately 1 J/pulse. The PI plans to carry out both experimental and modeling efforts during the course of this investigation.